Singular Structures Arising from Variational Problems in Materials Science

Proposal DMS-0401328
PI: Peter Sternberg (Indiana University)
Title: Singular structures arising from variational problems
in materials science

ABSTRACT

This proposal focuses on a study of singular structures that arise in
the solution to various variational problems modeling materials. These
structures include Ginzburg-Landau vortices in models for superconductors,
blister patterns in models for thin film delamination and segregation
patterns in models for diblock copolymers. Mathematically, all of these
models involve singular perturbations of nonconvex variational problems. The
tools that will be brought to bear include ideas from Gamma convergence and
a careful examination of the second variation of the energy.

This proposal involves an investigation of material behavior based on a
mathematical study of the energy
associated with various physical configurations. The materials to be studied
include superconductors and related devices, thin films which have been laid
on top of a substrate for manufacturing purposes, and diblock
copolymers--soft "designer" materials formed by two self-segregating species
of molecules. Based on the principle that materials naturally configure
themselves so as to expend the least amount of energy possible, one brings
to bear mathematical tools from the calculus of variations so as to better
understand the behavior of these materials.